Science Learning Community

Montgomery College - Rockville is annually awarding 40 scholarships to community college students and 8 scholarships to students who are transferring to a four-year institution to complete their studies in the fields of computer science, engineering or mathematics. The scholarship recipients enroll in a one-semester career development seminar in addition to the normal course of study. During this seminar course the students write resumes, practice interview skills, gather information about the offerings of several
four-year institutions that they have interest in attending and are learning to work collaboratively. Another feature of the program is student - to
- student mentoring via the internet.